Environmental Focus

9355655 McGonigle This is a three-year pilot project that will provide 48 middle- school teachers training in biological and environment sciences who in turn will provide in-service training to approximately 528 teachers. This two-part project will (1) enrich the biological and environmental science background of teachers through Summer Institutes presented by Academy research scientists and museum educators; and (2) produce written curriculum materials and classroom/field kits. The project requested $234,972 from NSF with institutions/agencies and school districts providing 33% in cost sharing.